9th International Congress on Combustion By-Products - Origin, Control and Health Effects; Tuscon, AZ; June 12-15, 2005

Award Abstract
CTS-0515895
9th International Congress on Combustion By-Products - Origin, Control and Health Effects - Student Travel Stipends

Funds are provided to partially support the cost of travel of five to ten U.S. students to the 9th International Congress on Combustion By-products to be held in Tucson, Arizona in June 2005. This meeting brings academic, government, and industrial representatives together to present research findings, update international policy, and discuss critical issues concerning emissions of toxic by-products and nanoparticles from the combustion processes. Meeting every two years since 1990, this meeting attracts between 150 and 200 delegates from all over the world. The students are selected based on the quality of abstracts submitted for presentation and need by the standing Executive Committee for the conference.

Research, especially environmental research, is becoming increasingly interdisciplinary. This meeting is especially designed to bring together engineers, scientists, and health effects researchers to discuss the environmental issues surrounding combustion. Our next generation of researchers must be familiar with these interdisciplinary issues to be successful. By encouraging the participation of students with partial travel support, we are developing and training the next generation of researchers.